Biogenic Particles, Microbial Production and DOM Dynamics in the North Atlantic Spring Bloom

The Joint Global Ocean Flux Study (JGOFS) is intended to be a decade long internationally coordinated program. This proposal is a level-1 component of the U.S. contribution to a JGOFS study along longitude 20 w in the N. Atlantic to take place beginning in 1989. Special interest in the North Atlantic as a candidate for GOFS first basin-scale effort arises because of the intensity and depth of winter mixing, which has major implication for biogeochemical processes in the global ocean. Significant episodes of vertical export from the Upper Ocean and deposition on the deep seafloor are associated with oceanic phytoplankton blooms in the North Atlantic. Deep convection in this region, and the transport of biogenic matter (both particulate and dissolved) is of profound consequence for physical and biogeochemical properties and processes in the South Atlantic, Southern and Pacific Oceans. In order to study the mechanisms regulating the bloom process, its fate, and the meridional variability in them, we propose a program with three components: a line of mooring deployed along 20 degrees west latitude between 33 and 60 degrees North, seasonal transects along 20 degrees West, and three process-oriented cruises at 33, 47, and 60 North. This proposal is for support for the overall coordination of the process-oriented cruises, and for some of the level-1 measurements which will take place on them. A high degree of planning and coordination is required to ensure the success of these cruises which will be part of a series of cruises to the same areas by ships and scientists from the United kingdom, Germany and the Netherlands. Furthermore coordination is required for enabling all related US GOFS projects and PI's to contribute to this effort and derived maximum benefit from it. This proposal also seeks support for the following level-1 measurements: microbial biomass (transect and process cruises), plant pigments by HPLC and in vitro fluorometry, POC and PON, and DON (all on process cruises only).